Targeted Infusion Project - Upgrade Physics Lab Technology Infrastructure and Develop Supplemental Instruction and Summer undergraduate research

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) through Targeted Infusion Projects supports the development, implementation, and study of evidence-based innovative models and approaches for improving the preparation and success of HBCU undergraduate students so that they may pursue STEM graduate programs and/or careers. Florida Memorial University will implement a Targeted Infusion Project entitled: Physics Laboratory Technology Infrastructure Enhancement and Summer Undergraduate Research. This project involves the development of pedagogical methodologies for providing instruction in physics. The aim is to engage students in an interactive learning process using digital media to stimulate learning and comprehension. This project will aid in the recruitment, retention, and preparation for graduate school and the workforce of physics, chemistry, biology and mathematics majors at the university.

Through this project, the teaching and learning process moves from the traditional method of instruction to a blended method of computer-based, web and internet assisted instruction. Specific objectives include: upgrading the physics laboratory; establishing a faculty and student led learning community via supplemental instruction; providing tutoring sessions in Biology, Chemistry, Mathematics and Physics; and providing intensive problem solving sessions for Algebra, Pre-calculus, Trigonometry, Chemistry and Physics courses. Summer research experiences will enable undergraduate students to develop critical thinking skills and work with a mentor.